Problems in the General Theory of Banach Spaces

PI: Lomonosov
Proposal Number: 0139900

ABSTRACT

The principal investigator will conduct research on two
projects which relate to both Operator Theory and Geometry
of Banach spaces. The recent solution of the complex version
of the Klee's Conjecture using ideas from Operator Theory
suggests further research on support points and
convex sets. Some new geometric approaches will be used
for investigating the Invariant Subspace
Problem in general Banach Spaces.

The principal investigator recently solved a long-standing
problem, constructing a convex body which has no tangent
hyper-planes. It is important to understand under which
conditions such a strange phenomenon can
exist. Another project starts with the fundamental fact
that every matrix has an eigenvector. A natural extension
of this to infinite-dimensional spaces would be that a linear
operator has an invariant subspace. We will investigate whether
this statement is true in a number of important cases.